First European Gordon Research Conference on Solid State Chemistry, Irsee, Bavaria/Germany, September 24-29, 1995

9504373 Storm As a result of the worldwide emphasis in Solid State Chemistry the first European Solid State Chemistry Gordon Conference will be held in Irsee, Germany, 24-29 September 1995. Research scientists from six European countries, Japan and the United States will present the broad international research effort in Solid State Chemistry. %%% Interest in Solid State Chemistry has grown dramatically in recent years, owing in part to the recognition of the technological importance and scientific challenges in the study of new materials. In the United States the advent of the Advanced Materials Processing Program (AMPP) as a national thrust in the synthesis and processing of new materials recognizes the important role of Solid State Chemistry in research on materials. Owing to the interdisciplinary nature of solid state research, other scientists are entering the field, including inorganic molecular chemists and solid-state physicists, further intensifying the study of new solids, the development of new ways to prepare them, and the application of appropriate characterization methods. ***